RUI: Origin of the Yreka Terrane and the Provenance of Sonomia

9417954 Wallin The Klamath Mountains have been in their present position since the Permian, however there is considerable controversy about their origin in pre-permian times. Essentially, two hypothesis are current - that theses lower Paleozoic rocks were part of a microplate (Sonomia) that was accreted during Permo-Triassic time or that the Paleozoic euqeoclinal rocks in California (Klamaths) are tectonostragraphically equivalent to coeval rocks in Nevada. This project will utilize the spatial distribution of the age range of Zircons eroded from precambrian rocks along the pacific margin, and the age range of detrital zircons in several formations in the eastern Klamaths to discriminate between these models. Additionally, the work is expected to elucidate the age, provenance and tectonic significance of lower paleozoic siliclastic rocks (Yreka terrane) in the eastern Klamaths.